Dynamics of Rodlike Polymers in Complex Media

9634713 Russo Entanglement of rodlike polymers will be investigated by diffusion measurements on model rods in binary solutions, liquid crystals, ternary mixtures with other polymers, and dispersions in permanent, inflexible gels. The methods to be employed include dynamic light scattering, fluorescence photobleaching recovery and analytical ultracentrifugation. These studies will illuminate the effects of molecular shape on entanglement, which is an important determinant of the processibility of rodlike polymers. By comparison to an extensive literature on entanglement in random flight polymers, the effects of molecular rigidity can be realized. This proposed work also bears on the nature of molecular composite precursor solutions and on anisotropic diffusion in polymer liquid crystals, while illuminating how matrix topography governs diffusion. %%% This grant falls in the area of molecular-level understanding of polymer molecules in various processing environments, such as solutions, blends, gels, etc., with emphasis on rigid-rod molecules such as liquid crystals. ***